International Group Travel Grant for Attendance of International Symposium on Thermodynamics, Beijing, China (PRC), May 30 - June 2, 1988

This award provides travel support for approximately 11 United States engineers and scientists to attend the International Symposium on Thermodynamics in Chemical Engineering and Industry in Beijing, China, May 30 - June 2, 1988. This is the first international conference to be held in the Peoples Republic of China (PRC) solely on thermodynamics, phase equilibrium, and separations. The benefits to the United States participants and the general United States technical community may be: (1) establishment of joint, cooperative research programs; (2) extended research visits by senior scholars from PRC at little or no cost to the United States laboratories in which they work; (3) an exchange of ideas and theories resulting in a cross fertilization of the research programs in both countries. A maximum allocation of $1,350 per person will be made for airline tickets only. Each recipient will provide a two-page travel report to be included in a final report. No sub-award will be made by Purdue University to any individual with a delinquent NSF grant final report.